Knots in Washington XVIII: Khovanov homology

Abstract

Award: DMS-0432284
Principal Investigator: Jozef H. Przytycki

This award provides partial participant support for the 18th
conference in the series, "Knots in Washington." This meeting is
devoted to the theme of Khovanov homology, and aims to bring
exponents of that new theory together with recent and current
students in topology, along with experienced researchers in other
aspects of knot theory and quantum topology.

A large number of methods have been developed for computing
numbers or polynomials that each measure some aspect of the
complexity of a knotted curve in space. The Alexander
polynomial, which is approximately 70 years old, is the first
example of this powerful class of tools. The search for
sharper ways to distinguish one knot from another and to
understand associated geometric questions gathered speed
approximately 20 years ago with the discovery of the Jones
polynomial and related invariants. Mikhail Khovanov of the
University of California, Davis, found in 1999 that the Jones
polynomial can be viewed as a one-line summary of a richer
theory, and ongoing work with Khovanov's ideas will be the
theme of this conference.